Myosin Phosphorylation and Neurotransmitter Secretion

Transmitter release and other secretory processes have been compared to muscle contraction in that both processes are regulated by Ca2+ and depend upon metabolic energy. Although secretion was thought initially to resemble the contraction of skeletal muscle, recent experiments suggest that it may more closely resemble smooth muscle contraction. Ca2+ is known to regulate smooth muscle contraction through the activation of the Ca2+/calmodulin-dependent enzyme myosin light chain kinase. The active enzyme phosphorylates smooth muscle myosin, which results in a stimulation of the rate of ATP hydrolysis by actin and myosin. In this study, knowledge of smooth muscle contraction will be used as a basis to investigate the role of myosin phosphorylation in catecholamine secretion. The studies will be performed on PC12 rat pheochromocytoma cells and on bovine chromaffin cells. Myosin and myosin light chain kinase will be purified from chromaffin cells, and the sites on myosin that are phosphorylated by myosin light chain kinase and by protein kinase C will be identified. Polyclonal antibodies against purified chromaffin cell myosin and myosin light chain kinase will be raised and used in the following experiments: (1) Antibodies will be used to correlate quantitatively myosin phosphorylation in intact chromaffin cells with intracellular Ca2+ and with catecholamine secretion in response to a variety of secretagogues; (2) They will be used to study the sites on myosin that are phosphorylated in order to identify the kinases that phosphorylate myosin in intact chromaffin cells; (3) Anti- myosin and anti-myosin light chain kinase antibodies will be electroinjected into chromaffin cells to study the effects of these antibodies on catecholamine secretion. These experiments are designed to elucidate the role of site-specific myosin phosphorylation in the regulation of neurotransmitter secretion. Moreover, by simultaneously studying myosin phosphorylation, cell calcium and secretion, these studies will provide important information on the physiology, pharmacology and biochemistry of transmitter release.